Dissertation Research: Effects of Elevated CO2 on Soil Carbon Dynamics: An Isotope Tracer Study

Increasing atmospheric CO2 may have profound effects on ecosystem carbon dynamics that could feed back to mitigate or exacerbate climate change. Through some studies have examined the effects of elevated CO2 on whole system carbon balance, few, if any, have examined its effects on soil respiration and soil carbon storage; these ecosystem processes will likely control whole-system feedbacks to climate change. Furthermore, it is important to understand how elevated CO2 affects the oxidation of different pools of soil carbon (relatively recent photosynthate, litter, and old soil organic matter), because if these pools respond differently, whole-system carbon storage and carbon allocation could be dramatically altered. In this proposal, the student request funding to examine the effects of elevated CO2 on the importance of rhizodeposits (carbon deposited belowground by plant roots), a single plant litter cohort, and remaining soil organic matter, in contributing to soil respiration in an annual grassland ecosystem. He will also investigate the effect of elevated CO2 on carbon storage in soil organic matter pools with longer turnover times. The proposed research offers a novel method of partitioning soil respiration into contributions of roots and microorganisms using a stable carbon isotope tracer, will contribute to a mechanistic understanding of the effects of elevated CO2 on soil carbon cycling, and will help refine his predictions of biological feedbacks to global climate change.